XXIIIrd General Assembly of the International Union of RadioScience (URSI); Prague, Czechoslovakia; 08/28 - 09/05/90.

This award will provide partial support for travel of selected U.S. participants to the XXIIIrd General Assembly of the International Union of Radio Science (URSI), to be held in Prague, Czechoslovakia, from August 28 to September 5, 1990. Funding will be provided to the National Academy of Sciences for this program. The triennial General Assembly is the principal mechanism for URSI activities. Participation by U.S. delegates in the past has resulted in cooperative programs with other nations. In addition, Assembly activities have been published in the "Proceedings of the General Assembly"; the "Review of Radio Science"; the "URSI Information Bulletin"; and trip reports by participants. As a constituent member of the International Council of Scientific Unions (ICSU), URSI receives support from NSF for its U.S. membership dues and for activities costs of its U.S. National Committee. The NSF Division of International Programs coordinates the activities of NSF in fostering international scientific cooperation. Under the Scientific Organizations and Resources Program, U.S. scientists and engineers are provided with broad access to the benefits of selected nongovernmental international organizations, including ICSU. Support of this travel grant is consonant with this activity. In consideration of the continued merit of URSI as a way of providing opportunities for cooperation in a multinational and multidisciplinary context, and of the highly satisfactory management of U.S. participation through the National Academy of Sciences, the program manager recommends an award.